Automorphic Forms and Distribution Laws for Discrete Subgroups

Abstract for award DMS-0401318 of Petridis

The principal investigator will investigate the distribution of modular
symbols and period polynomials (Gaussian distribution laws). He will
study perturbed Eisenstein series in Teichmueller space and character
varieties in relation to the disappearance of cusp forms (higher order
Phillips-Sarnak conditions), and apply analytic number theory techniques
in the spectral theory of Hilbert modular varieties (subconvex estimates
of the L-series of a Maass cusp form and equidistribution of Eisenstein
series) and Heisenberg manifolds (distribution of the error term in Weyl's
law for the eigenvalues of the Laplace operator).

This research falls into the general mathematical field of Number Theory.
Number theory has its historical roots in the study of the whole numbers,
addressing such questions as those dealing with the divisibility of one
whole number by another. It is among the oldest branches of mathematics
and was pursued for many centuries for purely aesthetic reasons.
However, within the last half century it has become an indispensable tool in
diverse applications in areas such as data transmission and processing, and
communication systems.